Interactions of Particles and Fields

Research in theoretical elementary particle physics will extend the understanding of the particles produced at present and planned accelerators, including the photon, W and Z particles, the electron, and . and their neutrinos, and quarks and gluons. It will concentrate on the physics responsible for the masses of many of these particles. This is the principal unsolved mystery in the standard model of the basic forces. The research will also deepen our understanding of quantum field theory, which provides the most useful mathematical language for the study of this physics. This language is important in other fields (condensed matter physics, for example) as well as in particle physics. This project also will focus on aspects of string theory. Specific areas of inquiry in string theory will include quantum gravity, aspects of strings propagating in a space (in particular, the study of strings in the context of cosmology and black holes), and topological field theories. String theory has been perhaps the most active area of research in high energy physics in the past seven years. Research in string theory is very important since string theory is the only known fundamental theory which reconciles quantum theory with Einstein's theory of gravity. This project will play an important role in the advancement of this subject by studying, classifying and unifying various solutions to string theory. Finally, the project will investigate the relations of elementary particles to objects and processes that cannot be directly studied at accelerators, such as the dark matter in the universe, black holes produced by gravitational collapse, grand unified theories and baryon number production in the early history of the universe.